Distributed Space-Time Communication For Wireless Sensor Networks

Wireless sensor networks have a large array of potential applications,
including environmental monitoring, home and factory automation, and
homeland security. This research addresses efficient data collection
from sensor networks, which is one of the fundamental bottlenecks to
large-scale deployment of low-cost sensor nodes. Two key difficulties
are scale (how to manage very large numbers of relatively
unsophisticated nodes) and energy (communication is energy-intensive,
but sensor nodes must operate for months or years on battery, or by
scavenging energy from the environment). This research has two
complementary research thrusts, both investigating novel techniques
for data collection from sensor networks, exploiting the natural
distribution of sensor nodes in space. The first, termed virtual
radar, enables deployment of extremely simple sensor nodes which do
not need networking or position location functionality, by moving the
complexity to a sophisticated data collection node. The second
approach requires more sophisticated nodes, and increases energy
efficiency and range by obtaining the functionality of multi-antenna
transmission by intelligent coordination between neighboring
(single-antenna) sensor nodes.

In the first thrust, termed virtual radar, sensor nodes with activity
to report electronically reflect a beacon transmitted by a
"driveby" or "flyby" collector node, thus
creating a radar-like geometry. The collector employs sophisticated
synthetic aperture radar like signal processing techniques to obtain
an "image" of the activity in the sensor field.
Tracking of events moving across the sensor field, and exploiting
multiple antennas at the collector, are investigated. The second
thrust, termed distributed transmission, involves investigation of
beamforming, diversity and power gains obtained by coordinating
between neighboring nodes, as a function of the level of
synchronization achieved among the nodes. Methods of achieving such
synchronization are also considered.